Sixth IUPAC Symposium on Organometallic Chemistry in Organic Synthesis, Utrecht, the Netherlands, August 25-29, 1991

A group of about 20 organic chemists will be selected to receive travel assistance to attend the Sixth IUPAC Symposium on Organometallic Chemistry directed towards Organic Synthesis in Utrecht, the Netherlands which will be held August 25-29, 1991. The U. S. chemists will present technical talks and have the opportunity to interact with specialists from all over the world. The possibility of travel support will be advertised and the applications will be reviewed by a panel of scientists. Professional and geographic factors will be considered in the final selection of participants. This travel grant is being funded by the Organic Synthesis Program.